Studies of Electron Capture, Secondary Processes, and Photodetachment in High Pressure Ion Sources

This research, in the Analytical and Surface Chemistry Program of the Chemistry Division, will study electron capture by molecules. Electron capture finds application in identification and quantification of certain classes of molecules, most prominently halogen containing molecules which are of biological and environmental importance. Prof. Grimsrud's research uses mass spectrometry to observe the process of electron capture and to quantify trace contaminants in samples. The unique aspect of Grimsrud's work is his use of photodetachment modulation. This improves specificity and sensitivity in analytical measurements. One can also differentiate electron capture capabilities of ground states and excited states, which is important in understanding how photochemistry modifies the chemistry of halogenated compounds in the environment. The study of secondary processes (processes preceeding or succeeding the electron capture event) also is indicative of details of atmospheric pressure gas-phase chemistry of the studied compounds, and is useful in understanding unexpected sensitivity in analytical measurements.